SGER Proposal- Evaluation of Fe-Mn Oxide Coatings as Ideal Archives of Deep Water Nd Isotopes on Cenozoic Time Scales

This SGER request funding to evaluate ND isotopes from Fe-Mn oxide coatings leached from marine sediments as potential archives to generate relatively high-resolution records of past water mass distributions on Cenozoic time scales.